U.S.-Sweden Seminar: Network Infrastructure and Regional Regional Development Planning, Stockholm, Sweden, July 1-3, 1993

This award supports U.S. participants' travel to a U.S.-Sweden seminar on urban and regional infrastructure and development planning to take place in Stockholm, Sweden, July 1-3, 1993. The principal objective is to bring together twenty-four prominent experts from the USA and Sweden who are currently conducting leading-edge research into the role of infrastructure networks (transportation and communication) in urban and regional development. The participants will develop a research agenda and exchange information on research methods, results and policy conclusions on how infrastructure networks grow and change and how interacting networks influence urban and regional development patterns in the long-term. The coordinators are Tschangho J. Kim at the University of Illinois and D. F. Batten and Lars Lundqvist of the Royal Institute of Technology in Stockholm. This is a very timely seminar. The problem of infrastructure and its relation to economic and social planning is a high priority for industrialized countries as cities continue to age and deteriorate. The Swedes have long been known as innovative thinkers on transportation and communication networks in the urban and regional context. The U.S. participants bring to the collaboration their expertise on transportation modeling, network analysis, economic in-put, out-put analysis and urban economics.